Eastern New Mexico University's Participation in NSFNET Connection

Eastern New Mexico University is establishing a connection to NSFNET via a 56,000 bits per second line through the New Mexico TECHNET state network and the WESTNET mid-level network. The connection enhances collaborations of campus scientists with colleagues at other institutions in fields such as chemistry, geology, anthropology, and the social and behavioral sciences, and allows access to libraries and other remote facilities throughout the internet. This award funds part of the costs for two years.***